Analytic questions motivated by L functions, Eisenstein series, automorphic forms, and trace formulae

The research undertaken by Jay Jorgenson involves collaboration with
numerous co-authors on a range of questions in analysis which are
motivated by questions from number theory, such as L-functions,
automorphic forms and trace formulae. The work with Jurg Kramer
focuses on questions which arise in certain aspects of Arakelov theory,
and extends into the study of theta functions, automorphic forms, and
Selberg's zeta function. With Cormac O'Sullivan, Jorgenson is developing
the theory of higher order modular forms which to date has produced
analogues of Kronecker's limit formula and Dedekind sums. The research
with Serge Lang involves zeta function constructions for general symmetric
spaces, beginning with SL(n,C). Certain methods of proof are common to
all investigations, such as techniques from analytic number theory, algebraic
geometry and heat kernel analysis, which provides for an interesting mixture
of ideas and consolidation of results.

The mathematical gadget known as the heat kernel appears in many diverse
areas of mathematics research, either explicitly or implicitly, and one aspect
of Jay Jorgenson's research activities is the investigation of the many
manifestations of the heat kernel. In the mathematics of finance, the classical
heat kernel in one dimension can be used to describe the Black-Scholes-Merton
formula, which is used to price certain stock options. In number theory, the
heat kernel is used to construct many basic objects of study, such as theta and
zeta functions. In geometry, analysis and probability, the heat kernel is both an
object of primary study as well as a tool to understand specific questions of
research interest. By studying the many realizations of heat kernels and heat
kernel techniques, Jay Jorgenson is able to utilize proven techniques in one field
of mathematics and develop ideas in another discipline. In addition, this method
of study has proven useful in providing students, both undergraduate and graduate,
with new ways in which they have access to certain areas of mathematical
research.